Microwave Lamps For Solar Simulation In Biotron

The Biotron, constructed by the National Science Foundation at the University of Wisconsin, is a premier research facility in the United States, providing precise and unique environmental control capabilities for plant and animal research. Use of the Biotron for plant research is significantly hampered, however, by the insufficient light intensities provided by the current lighting system. We propose to install electrodeless microwave lamps in one room of the Biotron to have the potential of effectively simulating the sunlight spectrum and providing in excess of 1000 mol m-2 s-1 of photosynthetic photon flux. These new lamps will be evaluated for their potential to provide these photon flux levels without excessive heating along with study of reflector design for effective uniformity, lamp degradation over time, and capability for dimming to carefully lower and raise photon flux levels. We will develop documentation to provide information for utilization of these lamps in other facilities needing high photosynthetic photon levels.